V IEEE Workshop on Signal Processing Advances in Wireless Communications (SPAWC-2004)

SPAWC-2004, the fifth IEEE International Workshop on Signal Processing Advances for Wireless Communications will be held from July 11-14, 2004 at Hotel Tivoli - Tejo, in Lisbon, Portugal. The Workshop is devoted to recent advances in signal processing for wireless and mobile communications. This workshop brings together members of the signal processing, communications and information theory communities, working in universities, research centers and telecommunications companies. The meeting will feature keynote addresses by leading researchers, as well as invited and contributed papers